A General Purpose Neurocomputer : Simulation and Feasibility

The existence of a universal neural network, AMNIAC, developed by the principal investigators for theoretical reasons, raises the possibility of implementing a general purpose neurocomputer, i.e., one which may be "programmed" to behave like any other neural network. Such general purpose neurocomputers will run different neural networks on the same hardware like our serial computers run programs today. A general purpose neurocomputer should include capabilities beyond those of a universal neural network. Most important among these are efficient massive storage, rapid retrieval, learning, and sophisticated input/output. The goal of this project is to simulate AMNIAC on a massively parallel computer. This simulation will allow the design of adequate massive storage, learning and input/output capabilities. It will also allow benchmarks to provide reliable estimates of the feasibility and efficiency of an actual general purpose neurocomputer.